Acquisition of a Micro Fourier Transform Infrared Spectrometer

This award provides one-half of the funds required to purchase a micro-Fourier Transform infrared spectrometer system. The equipment will be housed and operated in the Department of Geology and Geophysics at the University of Wisconsin-Madison. The University will provide the remaining 50% match for the purchase and will also provide laboratory space and the technical support to maintain the machine. The infrared spectrometer research at Wisconsin will focus on developing applications to determine the composition of microscopic fluids trapped in rocks and minerals and their use in interpreting deep crustal processes.